Oceanographic Technical Services, 2003=2005 R/V Maurice Ewing

0327363
Diebold
This 3-year award to Columbia University in the City of New York's Lamont-Doherty Earth Observatory (LDEO) provides support for technical services during NSF-funded programs on research vessel Maurice Ewing, which is operated by LDEO as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. LDEO will provide shipboard technicians on each cruise of R/V Ewing to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation. In addition, the award supports some specialized services on both the Ewing and other UNOLS vessels on which LDEO technical staff will provide support. Such services include multibeam sonar operations, multichannel seismic reflection profiling, seismic source support for refraction and calibration operations, and mitigation of acoustic impacts on marine mammals by seismic sources. The services supported here are expected to significantly enhance the operation of the research vessel via cost-effective and expert support of shared-use oceanographic instrumentation.
***